US Japan AI Syposium (Computer and Information Science)

This project provides partial funding for a symposium on Artificial Intelligence, jointly sponsored by NSF and the Japanese Institute for New Generation Computer Technology (ICOT). The purpose of the joint symposium is to provide a venue for the interchange of new scientific ideas, methods and approaches between the researchers from the U.S. and Japan. The main focus of the symposium is on artificial intelligence architectures, foundational aspects of artificial intelligence, artificial languages and methodologies, natural language processing and learning, and machine learning and knowledge acquisition. The 3- day symposium will be held in Tokyo, Japan, with a fourth day scheduled for a visit/tour of the ICOT facility.